Scheduling Algorithms for High Speed Switches with QoS Guarantee

Next generation networks will support transmission rates that are orders of magnitute higher
than current rates. Moreover, they will support a large variety of applications with different band-
width and quality of service (QoS) requirements. In particular, they must have the capability of
simultaneously supporting highly bursty delay-insensitive data traffic (e.g. file transfer), high-rate
delay-sensitive sessions (e.g. high quality video), and a large variety of heterogeneous services and
applications in between. To meet these requirements, next generation networks would need to
be implemented using packet switches that can scale to very high speed (e.g. aggregate speed of
multi-terabit per second) and can simultaneously support heterogeneous QoS for a large number
(hundreds of thousands) of ows.
While traditional packet switches based on shared-memory or output-queued architectures can
handle today's bandwidth (multi-gigabit/sec) requirement, they cannot scale to a large number of
flows and to very high speed (e.g. multi-terabit/sec). On the other hand, input-queued architectures
have much better scalability properties and perhaps are the only feasible design option to implement
switches at very high speed. However, supporting heterogeneous QoS to a large number of fl ows
with input-queued switches requires more complex scheduling algorithms, which can become the
performance bottleneck.
The proposed research project aims to design and analyze scalable scheduling algorithms for
packet switches that can support heterogeneous QoS to a large number of flows at very high
speed. In particular, the project will focus on fundamental scheduling issues involved in input-
queued switches with the switch fabric being a crossbar or multiple crossbars. In addition to the
study of QoS (e.g. delay, bandwidth guarantee, fairness) to individual flows, the project will also
address issues in scheduling multicast flows, the interaction between scheduling and queue over flow
management, and packet discarding algorithms. Theoretical and simulation studies will be involved.
The proposed research will yield a new understanding of the performance limits in packet switching
and the fundamental tradeoff between the scheduling complexity and the achievable QoS.